CombinaTexas 2011

CombinaTexas 2011

CombinaTexas: a Combinatorics Conference in the South-Central United States, is an annual regional conference on Combinatorics, Graph Theory, and Computing. It is dedicated to the enhancement of both the educational and the research atmosphere of the community of combinatorialists and graph theorists in Texas and surrounding states.

CombinaTexas 2011 will be held at Sam Houston State University in Huntsville, Texas on April 16-17, 2011. The special focus of CombinaTexas 2011 will be algebraic combinatorics. The following researchers have agreed to participate as invited speakers: Federico Ardila (San Francisco State University), Chris Godsil (University of Waterloo), Gregg Musiker (University of Minnesota), Michael Orrison (Harvey Mudd College), Rosa Orellana (Dartmouth College), Bernhard Schmidt (Nanyang Technological University), and Catherine Yan (Texas A&M University). CombinaTexas 2011 will also include several contributed talks by faculty, postdocs and graduate students and a poster session by undergraduate students.